NSF Young Investigator: Performance-Driven VLSI Designs

Three research issues in high-performance VLSI system design are being addressed: (1) how to relate the system performance function, characterized by electrical parameters, to the geometrical parameters of the VLSI physical design; (2) how to model performance driven VLSI physical designs based on given technology and computational capability; and (3) how to characterize the fundamental computational aspects of modeled problems and develop effective algorithms for solving them. A distributed RLC circuit model for interconnects is being designed. It considers: non-monotone circuit response, coupling effect among the signal lines, and low energy consumption. Efficient computation methods that solve time-varying Maxwell equations using the adaptive wavelet collocation method (AWCM) are being devised. The algorithms and methods are being included in a CAD system.